Full Option Science System (FOSS) for Middle School

9553600 Lowery The principal investigator proposes to develop, evaluate, publish, and disseminate nine minicourses to fulfill requirements for all three years of the middle school general science curriculum. Each minicourse will take nine to twelve weeks to teach. The new materials from the proposed project will combine with the K-6 materials of Full Option Science System (FOSS), developed previously with support from NSF, to produce a comprehensive set of materials for grades K-8. The three year project will start on 1 September 1996. The curriculum development process includes the following steps: (1) exploration of ideas in classroom, (2) local trial of activities, and (3) national trials in 20 locations throughout the nation. Each step of the process is followed by revision of the materials. Minicourses will include the following resources for teacher use: (1) kit of laboratory materials for up to 32 students, (2) teacher guide, (3) optional measurement tools, (4) student resource book, (5) multimedia program, (6) assessment package, and (7) teacher preparation video.